Integrating Research & Education: Extending and Sharing Successful Models

Duke University has been selected as one of ten recipients of the National Science Foundation's Recognition Awards for the Integration of Research and Education. Duke has embarked on a comprehensive and institution-wide effort to integrate research and education in the major aspects of university life. A Center for Teaching and Learning has been established to facilitate: a) development of discovery-based courses; b) transfer of cognitive research results on learning styles to classroom practices; and c) evaluate teaching effectiveness of faculty for consideration in salary, promotion, and tenure decisions. Campus networking (including dorm rooms) now provides students with access to Web-based course resources and linkages to faculty research. A Preparing Future Faculty program seeks to introduce graduate students to effective teaching methods that engage students in research and discovery-based activities. A new science building juxtaposes classroom teaching and faculty research. The university's efforts to integrate research and education were designed to create a new cultural paradigm on campus. Taken together, Duke University's basic restructuring of the undergraduate curriculum, creation of a mechanism that prepares graduate students to excel in their future teaching, and a significant revision of the faculty appraisal system represent profound change. The university is being awarded $500,000 with the goal of expanding, documenting, and disseminating its exemplary practices over the coming three years. Plans for the use of the award funds include: creating and implementing two new science and technology course clusters; implementing a senior capstone experience; expanding the summer orientation program for graduate teaching assistants; conducting an on-campus dissemination workshop for sharing program results; and conducting a three-day national conference to disseminate the Duke University model.